Postdoctoral Research Fellowships in Chemistry

Dr. David J. Norris has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Norris received his doctoral degree from the Massachusetts Institute of Technology under the supervision of Professor Moungi Bawendi. Dr. Norris will continue research at International Business Machines Almaden Research Center under the sponsorship of Dr. W. E. Moerner, Research Staff Member in the Laser Materials and Interactions Group. His postdoctoral research will target the optical spectroscopy of individual impurity molecules embedded in crystalline or polymer matrices utilizing methods developed by Moerner at IBM and near-field scanning optical microscopy (NSOM). The field is extremely young, and many possible areas of investigation exist. Dr. Norris anticipates the study of binary systems; that is, two molecules which are spatially discrete but in close proximity to each other. This situation will allow the investigation of interactions between two isolated molecules as a function of distance. Depending on the model system chosen, these experiments could study important processes such as electron transfer, energy transfer, or relaxation dynamics. As with previous single molecule work, these experiments may demonstrate new and unexpected phenomena. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph. D.s and attract them into meaningful careers in contemporary chemical research and teaching.